Ship Operations

9707822 JONES Oregon State University (OSU) will operate the R/V WECOMA during 1997 as a general oceanographic vessel in support of NSF- sponsored projects. The R/V WECOMA is a 185' general research vessel constructed in 1975 and underwent a mid-life refit in 1994. OSU operates the WECOMA under a charter agreement with NSF. The ship is scheduled for 188 operating days in 1997, of which 107 days are in support of NSF-sponsored programs. Of the remaining 81 days, 70 are in support of NOAA-supported programs and 11 are in support of Navy programs. The WECOMA begins the year with cruises off the coast of northern California, Oregon and Washington. In mid-May the ship transit to the Bering Sea for a 70 day NOAA cruise. The remainder of the year's cruises will be in the pacific northwest. This vessel is part of a fleet used by NSF to support oceanographic research. Most oceanographic research requires highly specialized equipment permanently installed on the vessel for which the ship must be specifically designed. This equipment also requires highly trained crew members for maintenance and operation. Oceanographic vessels do not operate in the same manner as general cargo or fishing vessels, therefore, NSF supports the operation of a variety of ships specifically dedicated to oceanographic research that are operated by universities and research institutions around the country. ***